Mathematical Biosciences Institute

The Mathematical Biosciences Institute (MBI) at Ohio State University
will be a base for interdisciplinary work by mathematical scientists
and biological scientists on a broad range of biological problems.
The mission of the MBI is (i) to develop mathematical theories,
statistical methods, and computational algorithms for the solution of
fundamental problems in the biosciences; (ii) to involve mathematical
scientists and bioscientists in the solution of these problems; and
(iii) to nurture a community of scholars through education and support
of students and researchers in the mathematical biosciences. To
promote its mission and overall goals, the MBI will build upon
existing research efforts in the mathematical biosciences and will
encourage human research development and intellectual growth.

The MBI will establish emphasis year programs, current topic
workshops, educational problems, and research projects.
Participants in MBI programs will be recruited nationally from
the disciplines of the biosciences, mathematics, and
statistics, and will include senior researchers, postdoctoral
fellows, and graduate students. To increase the impact and
cohesion of the program, there will be efforts each year to
connect to and build upon progress achieved in the preceding
years. The MBI will hold special workshops on current topics in
the biosciences that offer opportunities for mathematical
involvement. The Institute will also conduct summer educational
programs in the mathematical biosciences for college instructors,
students, and high school teachers.